Acquisition and Manipulation of Biomedical Data

The aim of this program is to improve the data acquisition and analysis skills of undergraduate students. This issue is addressed on two levels. On the more general level data acquisition hardware, data storage devices, and powerful packages for the mathematical manipulation of data will enhance the laboratory skills of the students. These skills are particularly important in problems which require real-time responses. A specific subset of this problem is the acquisition and manipulation of images. Students are prepared to design and build hardware and software for interpreting biomedical images, including those obtained from magnetic resonance imaging (MRI), computerized axial tomography (CAT scan), as well as X-RAY. The enhancement of the undergraduate computational facility with state- of-the-art scanning and recording devices is needed to increase student practical skills in this domain. Biomedical signal analysis, especially as it applies to medical imaging, is one of the fastest growing technologies of health care. It is vital that the undergraduate engineering programs keep up with the demand for well-trained, knowledgeable engineers for this industry.